Frictional Instabilities in Rolling Bearings

After demonstrating the overall feasibility of the computer modeling approach to investigate the frictional behavior of rolling bearings in Phase I, this Phase II research effort is directed towards the development of a comprehensive understanding of frictional interactions and the fundamental mechanics of initiation of an instability in the motion of bearing elements. The fundamental interaction models in the available computer codes for bearing performance simulation shall be greatly enhanced and significant correlations between bearing geometry and the frictional behavior between the bearing elements, shall be developed for both ball and cylindrical roller bearings. The research effort, in addition to a significant contribution to the rolling bearing technology, shall result in enhanced computer codes which will provide the foundations for technology transfer and development of specific designs. The findings of the research shall be significant for the design and performance simulation for a wide range of rolling bearings; the rolling elements bearings used in automotive and aircraft engines, gyroscopes and guidance systems, satellites and a variety of computer hardware are some examples. The results shall be particularly significant for solid lubricated rolling bearings used in adverse operating environments, such as the adiabatic diesel engines in automotive applications.